FAW:Research in Language Generation: Word Choice, FunctionalUnification, and Content Planning

This Faculty Award for Women Scientist is for Research in the area of natural language processing. This particular research focusses on the problem of word choice and on the user of a unification formalism to implement and represent generation decisions, including syntactic processes, word choice, and content planning. The Principle Investigator is testing previously developed language generation techniques as part of one or more generation systems. These include interactive question answering and multimedia system, as well as systems that can generate financial reports.//